Minority Access to Graduate Education and Careers in Science, Technology, Engineering and Mathematics - MAGEC-STEM

Title: Minority Access to Graduate Education and Careers in STEM

Savannah State University

HRD - 0310328

PI: Joseph H. Silver

Savannah State University (SSU) will implement a five-year comprehensive approach to strengthen the institution's undergraduate science, technology, engineering and mathematics (STEM) education and research infrastructure. The University will use a combination of NSF and intramural resources to increase STEM enrollment, attain a STEM undergraduate student retention rate of 80% and transition 30% of STEM graduates to graduate study. The project will cut across biology, chemistry, computer science, mathematics, engineering and technology.

Physical infrastructure improvements and expansions will accommodate new STEM programs and improve the quality of instructional delivery in existing STEM programs. Project objectives include the following:
STEM graduation rate will increase to 40% by 2008
30% of STEM graduates will pursue graduate study by 2008
80% of STEM graduate students will complete their graduate degrees
STEM student enrollment at SSU will increase by 20% annually
STEM retention through graduation will be no less than 80%
40% of computer science, electronics engineering technology and electrical engineering students will be Yamacraw certified by 2008
Equal number of GTREP students will graduate from SSU campus as from the other two GTREP satellite campuses by 2008; and 80% of STEM graduates will join the STEM workforce by 2008.